Acquisition of CAD Equipment

The Civil Engineering Technology Unit at this institution is acquiring new hardware and software for their Computer Aided Drafting (CAD) Laboratory to teach a generic approach to CAD. The special objective of this project is to teach disabled students, with limited mobility, the necessary drafting skills required in conventional drafting courses. In equipping the laboratory with 16 workstations consisting of an IBM PS/2 Model 50 computer, a color display monitor, a graphics tablet and mouse, AUTOCAD software and access to an HP Plotter, the disabled students are offered training on an advanced, industrial CAD system. The success of this project will potentially create new educational opportunities for the disabled. This award is being matched by an equal sum from the grantee.